Collaborative Research: HCC: Medium: Encoding a Plurality of Societal Values in Social Media AIs

Artificial intelligence (AI) algorithms underpin social media. Algorithms sift through a large inventory of content, deciding what appears at the top of each user's feed. These social media AI systems can shape people's beliefs, affect their well-being, and change their behaviors. These consequences accrue to individuals, but also aggregate at the societal level where the value of social media AI has been stubbornly difficult to square with the societal harms that they produce. Such issues are in part due to the individualist values embedded in how social media AI software operates, maximizing each user's individual experience–-as inferred, for example, through their likes, retweets, and surveys–-at the cost of societal preferences, such as community health and civic engagement. This project aims to shape an alternative future where social media AI software aids us in achieving societal goals, by demonstrating the feasibility of integrating such societal objectives into social media algorithms used to prioritize content in users’ feeds. The project goal is to create a method that can build translational science on top of social science and computer science, and develop engineering solutions that can be deployed at scale on social media, if desired.

This project will develop techniques for encoding societal values into social media ranking algorithms. Our multi-disciplinary team of researchers aims to 1) introduce a novel method that leverages the precise language of definitions and measurements of the social science constructs to build algorithmic objective functions using large language models (LLMs), referred to as societal objective functions, which can be deployed broadly as weights in social media ranking algorithms; 2) create a pluralistic algorithmic library of such societal objective functions based on rigorous and empirically validated social science theory articulating a broad space of values; and 3) build methods to integrate multiple potentially-competing values and understand the trade-offs between them. To achieve these goals, the project will weave together social science and computer science insights. Social science research will articulate the design space of societal values at play, as well as careful definitions and measurements of each of these values. Computer science research will translate these social scientific insights into AI models that agree with community ratings on the values expressed in social media content, enabling integration into feed ranking algorithms. By conducting large-scale field experiments with diverse populations, this project will provide empirical evidence on the impact of integrating a pluralistic library of societal values into such algorithms.